Acoustic Velocity Profiling in SYNOP

It is proposed to complete the analysis of moored acoustic current measurements from the Gulf Stream gathered as part the joint NSF/ONR Synoptic Ocean Prediction (SYNOP) program. The investigation centers on the regional energetics and eddy-mean flow interaction in the large meandering region of the Gulf Stream.